CAREER: Aleut Linguistics, Language Teaching, and Program Development

The proposed CAREER research project, "CAREER: Aleut Linguistics, Language Teaching, and Program Development," by Dr. Anna Berge of the University of Alaska Fairbanks, outlines a five year integrated research and education project to support fieldwork on the Aleut language to document its modern form, the creation of adult language learning materials, and development of a specialization in Alaska Native Languages within the Applied Linguistics MA program at the University of Alaska. This is an extraordinary opportunity to advance the career of a young woman both in research and education, as well as support an indigenous communities self identified need of language revitalization.